Studies of Large Scale Structure in the Universe

This award will provide support for a broad program of extragalactic studies. In the past, the Principal Investigator completed observations of redshifts of a group of galaxies that had been observed by the Infrared Astronomy Satellite. These observations will be continued, but approximately twice as many objects will now be observed. He will also continue to do computer simulations of the formation of structure in the universe. He also intends to initiate studies of the internal kinematics of distant galaxies in order to investigate the evolution of galaxies and clustering of galaxies. The Principal Investigator is regarded as a world authority on this subject.